Support for Conference on "Digital Image Processing: Techniques and Applications; Kona, Hawaii

The purpose of this conference is to provide an opportunity for researchers and practitioners from academia, government and industry to convene and exchange information and ideas. This meeting will provide an efficient means of transfer of information between those already actively using image processing methods, as well as to inform those considering use of the technology in the future of the potential benefits.